Louis Stokes Alliances for Minority Participation (LSAMP): LSAMP Pacific Alliance

The LSAMP Pacific Alliance proposes to initiate a collaborative that will effect a systemic change in the hiring patterns of Alaskan Natives, Native Americans, and Pacific Rim Islanders in the fields of SMET. The goals would be achieved by increasing the number of individuals who can access SMET careers through the increased recruitment, retention and placement within partner communities. The specific target is to double the number of Indigenous American students graduating annually, with 50% going on to graduate school.